Summer Industrial Fellowships for Teachers: An Expanded Program

This project, sponsored by the Triangle Coalition, will replicate the current summer internship program in a broader group of industries. In Phase I of the project the Triangle Coalition will hold a teleconference at 25 sites, selected to represent a geographic and demographic balance, at which the process of developing an internship program is described. Videotapes will also be produced during this phase to help in the dissemination of the internship program. In Phase II the internships will be developed through a large scale promotional program and the Triangle Coalition will put in place a regional consulting network to help new sites get started. The matching funds from business and industry exceed a 10-1 match of the NSF award.